Imputation for Survey Data with Ignorable or Nonignorable Nonresponse

The proposed research focuses on imputation and variance
estimation after imputation for survey data with nonresponse.
The investigator will study different models that relate auxiliary variables and
the variable to be imputed (e.g., parametric, non-parametric,
and semi-parametric models); different response mechanisms
(ignorable or non-ignorable); various imputation techniques (e.g., regression,
nearest neighbor, and random imputation);
different types of estimators (e.g., sample mean and
sample quantiles); and different types of data
(e.g., cross-sectional, clustered, or longitudinal data).
The investigator will also study a pseudo empirical likelihood
imputation method that provides more efficient survey estimators
than other imputation methods.
For each imputation method, variance estimation that takes
nonresponse and imputation into account will be studied, using
a direct derivation approach or a replication method (such as
the jackknife, the balanced half samples, and the bootstrap)
that contains a re-imputation component to assess the variability
caused by imputation.

Many statistics and government agencies collect data through surveys.
Most surveys have nonresponse. Item nonresponse occurs when
some sampled units cooperate in the survey but fail to
provide answers to some questions. Imputation techniques,
which insert values for nonrespondents, are commonly
used compensation procedures for item nonresponse. In
some cases, when auxiliary information is properly used,
imputation increases statistical accuracy. An essential
requirement for an imputation method is that one can
obtain unbiased (or approximately unbiased) survey
estimators and their variability estimators
by treating the imputed values as observed
data and using the standard estimation formulas designed
for the case of no nonresponse. This requires developments
on imputation methodology and statistical analysis procedures
to take nonresponse and imputation into account. Since
most of the proposed research topics are motivated by
problems in survey agencies such as the Census Bureau,
the Bureau of Labor Statistics, Westat, and Statistics Canada,
results obtained from the proposed research will have
significant impacts on the imputation and variance estimation
methodology for these survey agencies.